SHF: Small:Transforming Linear Algebra Libraries

Ever since the first FORmula TRANslator, compilers have purported to
take an algorithm, formulated in human terms, and compile it to an
efficient executable. Practice clearly does not live up to this
ideal, as programming languages force execution-oriented design
decisions on the programmer, and compiler imperfections necessitate
further manual optimizations. While the ordinary programmer can
ignore this problem by using libraries, the library developer cannot.
The problem appears more desperate now than ever, since it is not
known what form future architectures will take, combined with a trend
towards pushing complexity away from the architecture (for example to
lower power consumption) and onto the program and compiler.

The FLAME project already allows linear algebra libraries to be
developed and coded at a high level of abstraction that better
captures the underlying algorithms. It has already been shown that
these technique greatly simplify the porting of libraries to different
platforms ranging from conventional sequential computers to exotic
multiGPU accelerators. However, the APIs for coding at a high level
of abstraction incur a considerable performance penalty for operations
that in each step perform relatively little computation (e.g., level-2
BLAS operations and ``unblocked'' algorithms). As a result, a
nontrivial part of libflame, the library that has resulted from the
project, still requires coding at a low level.

The project will develop a source-to-source translator will take
algorithms expressed at a high level of abstraction and will transform
these into a range of representations, including high-performance
low-level code. This will overcome the final legitimate objection to
the FLAME methodology since coding at a high level of abstraction will
no longer carry a performance penalty. The approach will be
generalized so that code transformations that an expert applies by
hand in order to target different platforms will be made mechanical.
Together, these represent a major departure from traditional
approaches to library development.